High Speed Optical Scanner for Reflectance Spectroscopy

This SBIR Phase I research addresses the feasibility of a web optical scanner for manufacturing process control. The concept uses on-line diffuse reflectance and transmittance measurements. A fiber optic coupler, which is an essential modular component of such an on-line reflectance/transmittance, system will be designed and fabricated in Phase I. This will be the basis for coupling ultraviolet, visible, and near infrared illumination to a sheet and from a high density, 200-per-meter, linear pixel array, to a single photodetector. The fiber optic coupler will be integrated with a shutter mechanism to provide serial readout in a line across the web. The cross web scan of commercial devices will be 100 milliseconds for an entire sheet width. A reflectance scanner assembly can be compact, noncontacting, and adaptable to a range of illumination and detection angles. High resolution (1 millimeter) machine and cross directional profiles will be possible on constituent concentrations and variations over a range of machine-direction surface lengths from 10 meters to 1 millimeter. Reflectance/transmittance spectroscopy permits measurement of average coatweight and high spatial resolution variance of coatweight, as well as similar determination such as color, moisture, binder concentration, gloss, and fluorescence factors. This scanner technology is thought to hold advantages in coatweight measurements over the widely applied technology of traversing, beta-ray measurements, with its use of radioisotopes.